Mathematical Sciences: Integral Geometry and Related Topicsin Geometric Analysis

The principal investigator will continue his investigation of problems in integral geometry and related areas of geometric analysis. He will attempt to extend his earlier work on the maximal flat transform on a symmetric space of compact type to construct all symmetric coverings of such spaces. He will also study integrals attached to the distinguished class of maximally curved spheres and look for higher homotopy group information. This award will support research in the general area of integral geometry. The geometry of a set may often be analyzed and described by a decomposition of the set into slices. The geometry of the slices is often fairly simple and easy to describe. The main difficulty in the analysis is usually the reconstruction of the underlying geometric features of the entire set from the geometry of the slices. One well know application of this area of mathematics is the CAT scan.